Metal Oxide Solid Solutions: Macroscopic to Nano-Scale

The Macromolecular, Supramolecular and Nanochemistry (MSN) program of the Division of Chemistry will support the research program of Prof. Marjorie Langell of the University of Nebraska-Lincoln. Prof. Langell and her students will study the effects of composition and size on the magnetic properties and chemical reactivity of bi-metallic transition metal oxide nanoparticles using state-of-the-art computational and experimental spectroscopic methods including ones that are only available in synchrotron facilities. The study is potentially transformative since it could lead to significantly improved properties of nanoparticles in a wide range of applications including magnetic memory and electronic devices, battery technology, photocatalysts and gas sensors. The study will be provide excellent training opportunities to undergraduate and graduate students in a cutting edge research area that bridges fundamental science with nanotechnology.